Automating Combinatorics

Doron Zeilberger proposes to continue to develop
methodologies for harnessing the great potential of
Computer Algebra to do research in Combinatorics and
related areas, and design experiments for (rigorous)
computer-assisted and computer-generated research.
In particular he hopes to develop a new algorithmic theory
to be named `Symbolic Moment Calculus', that would produce
algorithms for computing, symbolically and automatically,
(statistical) moments of interesting combinatorial quantities.
He also plans to develop a general theory of recurrence equations
that would include both the `Dynamic Programming' recurrences
featuring the maximum, ubiquitous in Computational Biology,
and the mex operation, that occurs in the theory of
Combinatorial Games.
He also proposes to continue his
efforts in `Artificial Combinatorics', and develop algorithms
for the discovery and rigorous proof of
enumeration schemes for counting permutation classes, and for
automatically deducing generating functions. Another
line of research concerns automatic determinant evaluations
that has potential applications in applied mathematics and
science.

This research should be symbiotic, as it is
expected that both the concrete results and
the underlying methodologies, would help computer algebra developers
to improve and enhance their systems. It is also hoped that
this research will contribute to the budding field of Experimental
Mathematics, in that it will help develop a research methodology for
conducting computer experiments that output rigorous
(and interesting!) mathematical theorems
(and proofs), rather than just verifying and formulating conjectures.

This research is in the field of Combinatorics, whose usefulness
to science and technology is well-known. In particular, computer
science is largely based on combinatorics, as is electronic
communication and the World Wide Web.